Audio-Visual Kinematic Specification of Articulatory Dynamics

ABSTRACT Recently, it has become apparent that a thorough understanding of speech perception must involve an understanding of how audio-visual speech is perceived (Summerfield, 1987). However, relatively little work has been conducted to determine the informational metric for audio-visual speech integration. This research has been designed to determine what this metric is and whether the form of the information for auditory and visual perception is similar. The first series of experiments tests if the perceptual primitives of audio-visual speech perception are articulatory or low-level energy properties. Computer-animated visual displays coupled with discrepant auditory information will be used. The second series of experiments tests the feasibility of modality-independent speech information (Summerfield, 1987). A visual display technique which allows for efficient kinematic analyses will be implemented (Johansson, 1974). The final series of experiments have been designed to determine if kinematic information for speech can specify articulatory dynamics. Visual kinematic properties which are specified to dynamic articulatory states will be determined and then tested in perceptual experiments. These experiments should add to our understanding of speech perception and, specifically, speech (lip) reading. The proposed kinematic analyses and computer animation techniques should help determine the salient kinematic parameters which underlie speech reading.